2017 CRCNS Principal Investigators Meeting

The PIs and Co-PIs of grants supported through the NSF-NIH-ANR-BMBF-BSF Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This thirteenth meeting of CRCNS investigators brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks, plenary lectures, and workshops.
The meeting is scheduled for June 14-16, 2017 and is hosted by Brown University. More information is available at http://crcns2017.brown.edu.